SBIR Phase I: High Temperature Shape Memory Alloy Thin Film for Micro-Electro-Mechanical Systems (MEMS)

This Small Business Innovation Research Phase I project will develop a technology for vacuum deposited high temperature SMA thin film for micro-electro-mechanical (MEM) systems. These films exhibit physical and mechanical characteristics identical and even better than those of conventional forms of TiNi. Perhaps most importantly, the process of thin film deposition is compatible with that for Si micromachining and offers a unique possibility for the mass production of highly integrated microdevices using SMA actuators. This Phase I research effort will take advantage of the benefits of sputtering technique to obtain high temperature SMA actuators. Foils with a wide range of thickness (I to 20 microns) and composition will be produced for testing purposes and for use as actuators for fluid and gas microvalves designed by Ti-Ni Alloy Company. Reliable and fast acting latching/release mechanisms, miniature resetable circuit breakers, safety devices, strip and membrane valve actuators are just some of potential uses for this material.